Unified Modeling of Galaxy Populations in Clusters

Understanding the history of galaxy and cluster formation fundamentally affects our knowledge
of the Universe as a whole, and sets the context for our place within the Universe.
This project will use Blue Waters to model the formation and evolution
of a population of galaxies in a Coma-sized galaxy cluster, including their contribution
to and interaction with the Intra-Cluster Medium (ICM). Modeling galaxies and the ICM in galaxy
clusters is a formidable challenge. The morphology of the galaxies, and the energy and
metal content of the gas is ultimately controlled by star formation processes that happen
on molecular cloud scales of less than a million solar masses. On the other hand,
total cluster masses exceed 10^15 solar masses; hence a dynamic range in mass of over a billion is
necessary for consistently modeling galaxies within this context. The investigation of such
issues is appealing to many interested in science and even in society at large. In particular,
the results of the project will be used in a program that will introduce the use of computer
simulations in astrophysics to science pre-majors, in the hope of ultimately attracting
underrepresented students into a STEM major.

Several advancements have now enabled the modeling of these systems. First is the availability
of supercomputers like Blue Waters that can sustained petaflop calculations on real world
problems. Second is the improvement of hydrodynamic modeling in Lagrangian codes. These improvements
include better modeling of multiphase medium and the resulting instabilities, more accurate
handling of high Mach number shocks, and better modeling of the subgrid physics including
growth and feedback from supermassive black holes. Finally these algorithm improvements have
been implemented in codes that can scale to a large fraction of Blue Waters even with very
clustered datasets. This project will use the highly scalable N-body/hydrodynamics code, ChaNGa, to model the
formation and evolution of a population of galaxies in a Coma-sized galaxy cluster, including
their contribution to and interaction with the ICM. This model will be compared to observations
of cluster galaxies to understand the physical and temporal origin of their morphologies.
The model ICM will be compared to X-ray and microwave (via the Sunyaev-Zeldovich effect) to
understand the relation between these observables and the underlying gas properties. Finally,
the overall mass distribution will be used to better understand how these clusters gravitationally
lens background galaxies.